Electromagnetic Compatibility Center -- An Industry/University Cooperative Research Collaboration

A planning meeting will be held to determine if a multi-institution Industry/University Cooperative Research Center for Electromagnetic Compatibility will be established at the University of Oklahoma, University of Missouri-Rolla, Clemson University, and the University of Houston. Electromagnetic compatibility is an essential feature of virtually all high speed digital electronic devices ranging from consumer electronics to essential control and information processing systems.

The proposed center will perform research in areas that are identified by industry as being significant and valuable for their continued growth and development. The proposed center could function as an electromagnetic compatibility solution resource center for future problems important to industry.